Board of Engineering Education

This grant will provide for the initiation of a new National Research Council (NRC) activity, a Board on Engineering Education. The Board will be one of the major units of the NRC with oversight jointly provided by the Commission on Engineering and Technical Systems and the Office of Scientific and Engineering Personnel. The primary purpose of the Board will be to provide a continuing capability to assess the environment for engineering education in the United States and to develop strategies for shaping and implementing national engineering education policies at all levels. The Board will serve as an institutional focus at the national level that can coordinate, monitor, and advocate action for the advancement of engineering education.